Public-Access Astrophysical Opacity Facility

The radiative opacity of stellar material is fundamental to calculations of stellar structure, evolution and pulsation. In 1985 M.J. Seaton of University College London proposed an international project which would exploit modern computing capacity to produce an up-to-date set of opacities. The calculations are now finished and this grant will support setting up a database system to provide network access to the results. It will also have the capability to calculate various physical quantities from the database to the specifications of the user.